I/UCRC Center for Iron and Steelmaking Research

WPCD 2 B V P Z Courier 10cpi ? x x x , k x 6 X @ 8 ; X @ HP LaserJet Series II HPLASEII.PRS x 6 X @ 8 ; , t 0 OpX @ #| x 2 B h # REVIEW ANALYSIS This proposal is for the "Self Sufficient Partnership for Research" Program at Carnegie Mellon University's Industry/University Cooperative Research Center for Iron and Steelmaking Research. Three reviewers reviewed this proposal and rated it "Very Good." Two reviewers noted that a letter from the Industrial Advisory Board endorsing the Center should be received before this project is funded by the I/UCRC Program. This letter has been provided by the P.I. The Program Manager recommends this project be funded.